Assessing the Importance of Extensional Processes in the Sevier Orogen

Isostatically compensated, tectonically thickened lithosphere in a compressional orogen has a tendency to spread laterally under the influence of gravity. Whether or not forces are sufficient to produce extensional deformation in a specific compressional setting depends on a number of factors. This project will evaluate the possibility that Late Cretaceous extensional deformation may have played an important role in the evolution of the convergent Sevier Orogen by study of two areas where extension is suspected- The Funeral Mountains of southwestern California and the Britterroot dome of Idaho- Montana. Research will focus on mapping, fabric analysis, geochronology, and PTt path geochemistry to attempt to document the extent of Cretaceous extension. Results will provide needed data to identify the important factors controlling the existence and degree of extension accompanying overall compressional tectonics.